The Social Science Research Laboratory

The Department of Sociology, Anthropology and Social Work has developed a social research curriculum and a Center for Social Research. The curriculum and center provide opportunities for social science students to conduct field and laboratory research preparing them for careers as researchers, teachers and advisors and as scientifically literate citizens. The computers, printers and software funded by this award are used throughout the curriculum to foster methodological rigor and analyze real world data. The award will be matched by an equal amount from the grantee.